Topological Hysteresis, Structure and Nucleation of the Intermediate State in Type-I Superconductors

Non-technical abstract

The superconducting intermediate state is formed in elemental (type-I) superconductors as a
complex pattern of normal and superconducting regions. Newly developed
experimental techniques may lead to a substantial revision of our current
understanding of this state. These techniques allow one to observe local
magnetic fields of the intermediate state in real time and to measure them
with extreemly high sensitivity. This research has connections to important
questions of pattern formation in complex mathematical, geophysical,
chemical and biological systems and even to the formation of galaxies. The
project carries significant educational impact. Students of all levels will
work on the project, each performing specific set of measurements. Some
experiments will be part of the advanced solid-state physics laboratory. The
project involves active domestic and international collaborations with the
leading experts in the field, including those who initiated related studies
decades ago. A workshop on pattern formation in type-I superconductors is
planned at the end of the research term.

Technical abstract

This individual investigator award will support comprehensive studies of the
intermediate state in type-I superconductors. Unique experimental
techniques, such as magneto-optical visualization of magnetic fields and
pico-emu sensitive tunnel-diode susceptometry, combined with conventional
methods, will be employed to understand the intermediate state in a broader
context of pattern formation in highly nonlinear systems. The study of
topological hysteresis and complex shape effects may lead to the
identification of unusual thermodynamically equilibrium states and,
ultimately, to substantial revisions of our current understanding of type-I
superconductivity. The ability to continuously tune the system across a
broad range of topologies using both temperature and magnetic field makes
type-I superconductivity an ideal arena in which to study general questions
of pattern formation in nonlinear systems. Connections to biological,
chemical and astrophysical systems will be studied as part of this project.
The project carries significant educational impact. Students of all levels
will work on the project, each performing specific set of measurements. Some
experiments will be part of the advanced solid-state physics lab. The
project involves active domestic and international collaborations with the
leading experts in the field, including those who initiated related studies
decades ago. A workshop on pattern formation in type-I superconductors is
planned at the end of the research term.